Turbulence and Mixing in Holmboe Waves

0097124 -- Smyth/OSU

This project is a preliminary numerical investigation of whether Holmboe
waves can generate appreciable mixing in idealized stratified flow
configurations similar to those that might be expected in some oceanic
regimes such as exchange flows. This research will examine whether a
significant mixing efficiency can be achieved. A spectral model of a
continuously stratified flow containing a sharp density gradient and a
more gentle shear gradient will be used to make direct numerical
simulations of the growth and nonlinear development of Holmboe waves.
If numerical results provide evidence that the Holmboe instability leads
to effective mixing, this will provide an impetus for a more thorough
investigation of the life-cycle of Holmboe instabilities and the
associated mixing.